Building the Interspace: Digital Library Infrastructure for a University Engineering Community

This project constructs a digital library testbed and pursues fundamental research addressing the scalable organization of large digital collections. The testbed contains a digital collection containing journals and magazines in the engineering literature in structured SGML format plus pictorial materials obtained from commercial and professional publishers. The associated information systems initially centers about NCSA Mosaic for document display and network access of other resources. Basic research encompasses both technical and social aspects of the testbed capabilities, usage and usage patters including: sociological analysis (including ethnographic observation, surveys and other instruments); economics research over a range of issues. A general goal of the efforts is to enable the design and analysis for digital libraries infrastructure capable of scaling to very large systems.